Regulation of Morphogenesis and Multicellular Development in Aspergillus

Multicellular development in eukaryotes requires precise integration of a
number of fundamental biological processes. Environmental or intrinsic
factors can activate diverse signal transduction pathways that elicit
tissue- or developmental-specific morphogenesis. Orderly differentiation
and spatial organization of diverse cell types frequently requires that
regulation of cell-specific gene expression be coupled to alterations in
cell cycle regulation. Ultimately, cellular morphogenesis is driven by
changes in basic processes controlling cell growth, polarity, and asymmetry
in cell division. The long-term goal of this project is to address
mechanistic questions concerning multicellular development and tissue
formation using the filamentous fungus Aspergillus nidulans. As in higher
eukaryotes, external and internal signals induce two highly synchronous
developmental events. Asexual reproduction (conidiation) is characterized
by the spatiotemporal organization of a limited number of differentiated
cell types. Complex transcriptional regulatory interactions coordinate the
expression of hundreds of cell-specific genes with critical changes in cell
cycle regulation. A conidiation-independent set of regulatory interactions
controls both tissue formation during sexual reproduction and cell cycle
modifications required during gametogenesis. The objectives of this
proposal are directed toward elucidating mechanisms that control
multicellular development during conidiation, regulate gametogenesis and
sexual tissue development, and integrate these two reproductive processes.
Specific objectives are focused upon a molecular analysis of the Medusa
(medA), Stunted (stuA) and AnSterile12 (anste12) genes. MedAp is required
for commitment to the developmental program, functioning as a co-activator
of a subset of conidiation-specific genes and of unknown function in
gametogenesis. StuAp is an APSES-domain protein that is an essential
component in integrating developmental gene expression and cell cycle
regulation. The homeodomain protein AnSte12p is related to fungal proteins
known to play essential roles in converting distinct signal transduction
inputs into specific developmental events. A balance between functions of
StuAp, MedAp and AnSte12p with other developmental regulators establishes
cell-specific morphology in Aspergillus nidulans.

During the proposed funding period a series of interrelated classical
genetic, molecular genetic and biochemical experiments are designed to: 1)
identify DNA response elements within an upstream enhancer required for
developmentally regulated, but BrlAp-, AbaAp-independent expression of
stuA; 2) begin characterization of novel regulatory factors that bind
these response elements; 3) determine if stuA overexpression alone, or in
combination with brlA, alters the cell cycle through modification of G1/S
and/or G2/M checkpoints; 4) continue characterization of extragenic
suppressors of stuA mutations and extragenic mutations that mimic the
stunted phenotype; 5) functionally characterize MedAp - is it a novel
sequence-specific DNA binding protein?; 6) isolate extragenic mutations
that suppress medA -induced growth arrest; 7) physically characterize the
A. nidulans ste12 homolog and begin analysis of the biological role of
AnSte12p in Aspergillus development. These experiments should provide
important insights into similar mechanisms operating in dimorphic fungi as
well as regulatory features that distinguish homothallic and heterothallic
fungi. These experiments should also provide a greater understanding of
the diverse strategies used to direct eukaryotic cell differentiation and
responses to environmental factors.